Modern methods in the Calculus of Variations with applications to materials science and hydrodynamics

Leoni
0708039

The central theme of this project is the application of
modern Calculus of Variations to materials science and
hydrodynamics. The investigator undertakes the following
specific projects:
-Heteroepitaxial thin films. The investigator studies from the
variational point of view a mathematical model for the epitaxial
deposition of a film onto a relatively thick substrate in the
case of a mismatch between the lattice parameters of the two
crystalline solids.
-Strain gradient plasticity. The investigator derives, in a
mathematically rigorous way, a strain gradient theory of
plasticity starting from a variational formulation of the
equilibrium problem for a finite number of dislocations in a
plane domain.
-Water waves. An alternative approach for the existence of
regular water waves and of Stokes wave of greatest height is
undertaken.
Other projects include image segmentation problems and
micromagnetics.

The central theme of this project is the application of
modern techniques in mathematics to various problems in materials
science, mechanics, and hydrodynamics. When a thin film of a
crystalline solid is deposited on a substrate, a common
industrial process, difficulties can arise if the crystal lattice
structures of the film and the substrate do not match. The
investigator studies this problem. A fundamental question in
materials is the effect of dislocations in the material
microstructure on larger-scale behavior. Classical plasticity
theory does not address this issue well. The investigator
develops a theory of strain gradient plasticity that incorporates
dislocations and their interactions. He also considers problems
in water waves, image processing, and micromagnetics. The
results and methods developed in the project will be incorporated
in new graduate courses, and some will be included in a series of
books that the investigator is writing in collaboration with I.
Fonseca,